IEEE Intelligence and Security Informatics Conference

Intelligence and Security Informatics (ISI) has been established as an interdisciplinary subject that focuses on the development and use of advanced information technologies, including methodologies, models and algorithms, infrastructure, systems, and tools, for local, national/international, and global security related applications through an integrated technological, organizational, behavioral, and policy based approach. The international conference was first held in 2003; ISI 2009 will be held in Richardson Texas. This award will support student scholarships to attend the meeting, encouraging participation from a wide range of students.